VPW: Reativistic Treatment of Nuclear Reactions and Nuclear Structure

Dr. Bunny C. Clark's research in nuclear theory represents an extension of ongoing efforts to develop relativistic descriptions of a wide range of nuclear reactions and nuclear structure (e.g., global optical potential, nuclear densities, meson-nucleus scattering, inelastic reactions). The results of this work have already proved useful to experimental groups around the world. Interactive activities include working with the internationally recognized physics education research group, P.E.G., headed by Professor Lillian McDermott; and participating in the activities of the group including the inservice teacher program and the innovative inquiry-based tutorial program for calculus-based and algebra-based physics courses. In addition, Dr. Clark will organize a series of seminars and meetings with women faculty, postdocs, graduate and undergraduate students at the University of Washington.